Technology for All Americans

9355826 Dugger Standards for technology education are needed to complement the national standards in mathematics and science. The first phase of the project is to articulate a rationale and structure for technology education - a vision for the intellectual domain for technology education and its interface with science and mathematics. The International Technology Education Association (ITEA) develops the document and the processes for evaluating it to gain consensus and acceptance by the technology education community and other constituencies. An Advisory Board of people with national reputations in various fields oversees the process.